Introduction of Advanced Petrographic Techniques for Geology Majors

The Department of Geology is purchasing microscope equipment for use in a variety of geology courses, undergraduate research, and lecture demonstrations. This acquisition represents a major step in the modernization of the geology curriculum. In the economic geology course, microscopic studies are carried out on a number of ore and mineral samples. In petrology courses, students are able to use the reflective capabilities of the instrument to study various silicate systems. A recent undergraduate research project involved a study of ore mineralization adjacent to a granitic dike.